Instrumentation And Control Systems Laboratory Workstations

This project enhances an existing instrumentation and control curriculum to enhance laboratory activities in Electronics Technology, an engineering related program within the College of Technology at Bowling Green State University. Specifically, students will gain the ability to construct models of a physical system based on theoretical calculations. These models will be exercised and performance data collected. The students will then reconcile the discrepancies between the model and the physical system. In addition to serving the Electronics Technology students, Computer Science students who minor in microcomputer specialization are required to take courses that will use the laboratory workstations.